Studies in the Foundations of Game and Auction Theory

This project consists of a methodological and an auction-theoretic section. The former extends
the literature on the foundational theory of extensive games by introducing the notion of
epistemic priorities and analyzing its implications. The latter applies the foundational approach
to game theory to the study of standard and novel auction mechanisms; hence, it helps clarify the
connections between the predictions of auction theory, and its underlying behavioral and
epistemic assumptions.

The notion of epistemic priority reflects the idea that players may entertain various hypotheses
about their opponents, and rank them according to their plausibility. Epistemically prioritized
hypotheses form the basis for an axiomatization of solution concepts incorporating forward
induction, but are also useful in understanding the role of belief consistency in equilibrium
analysis.

The analysis of auctions employs normal- and extensive-form rationalizability, augmented with
appropriate assumptions on bidders' mutual beliefs. This project develops general techniques to
solve a variety of "standard" auction mechanism under different assumptions about payoffs and
information. This methodology is then employed to assess the robustness of "classical" results in
auction theory, such as revenue equivalence / revenue ranking of different auction formats, bid
shading in first-price auctions, and demand reduction in uniform-price auctions.